Embedded Computer Engineering

This is a planning grant for department level reform at the University of Kentucky Electrical and Computer Engineering Department and the Computer Science Department. This new and innovative undergraduate computer engineering degree program gives a consistent emphasis to embedded use of computers.

The goal was to cover "what computer engineers should know" rather than copying another curriculum or yielding to biases about using existing courses or aligning with faculty research interests.

Rather than a traditional senior design project, each student will be required to have a multi-semester "embedded" engineering experience doing computer engineering work within a group whose primary focus is not computer engineering, but is consistent with the student-selected theme.

Students in the new program will select do their computer engineering work within a community service organization, industry partner, research group at the University of Kentucky, or faculty-supervised student project team (e.g., the solar racer team). The embedded computer engineering program faculty will directly recruit, assign students to, and oversee the projects within these partner groups, much as has been done in EPICS.